Wave Patterns in Chemical Reaction-Diffusion Systems

Professor Anatol M. Zhabotinsky is supported by a grant from the Theoretical and Computational Chemistry Program to study spatial pattern formation in chemical reaction-diffusion systems (RDS). A major goal of this research is to study new types of chemical wave patterns and ultimately to compile a comprehensive set of experimental examples of the basic types of wave patterns in chemical RDS which are supported by a kinetic analysis of the corresponding reaction mechanisms. The research has two immediate objectives: 1) a search for wave patterns emerging in uniform stable RDS via the wave (Turing-type 2) bifurcation; and 2) a study of chemical wave propagation and interaction resulting in new types of pattern formation in chemical RDS with parametric gradients or anisotropy. The latter line of work originates from new wave patterns discovered by the Principal Investigator and collaborators in the Belousov-Zhabotinsky RDS with an oxygen concentration gradient. %%% Spatial pattern formation in chemical reaction-diffusion systems (RDS) is an important problem in modern macroscopic chemical kinetics. Chemical reaction-diffusion patterns constitute the most convenient analog models for pattern formation in neurobiology, morphogenesis, chemotaxis, and ecology. A number of oscillating chemical reactions are important in the functioning of living organisms, and pattern formation is essential to such fundamental biological functions as cardiac stimulation. Zhabotinsky's research in this area will provide many important mechanistic insights into these processes.